Fault Deformation Studies of Rootless Detachments: Implications for Assessing Regional Extension

9902782
Anders

Very large, gravity driven surficial slumps develop deformational characteristics remarkably similat to those generated by tectonically driven crustal extension normal faults, yet their tectonic importance is dramatically different. Uncertainty in origins of several large extensional features have historically complicated understanding of the tectonic deformation of areas such as the Basin and Range province of the western United States. This project involves a comparison of the fault zones of large crustal-extending normal faults with those of large rootless slide blocks in an attempt to develop a set of criteria to discriminate between gravity or tectonic origins. Results may provide a new tool for partitioning extension related and surficial deformation in geologically complex, highly extended terranes, and hence in assessing the magnitude of regional extension in such regions.